U.S.-Japan Joint Seminar: Transmutations, Reproducing Kernels and Methods of Modern Complex Analysis

9603029 Gilbert This award supports the participation of American scientists in a U.S.-Japan seminar on Tansmutations, Reproducing Kernels and Methods of Modern Complex Analysis to be held in Newark, Delaware from June 3-8, 1997. The co-organizers are Professors Robert P. Gilbert of the University of Delaware and Takafumi Murai of the Tokyo Institute of Technology in Japan. This seminar will bring together leading researchers to discuss a number of topics related to reproducing kernels, fundamental singularities, other function theoretic methods, and related numerical and symbolic computations. %%% The field of complex analysis offers practical applications in the solution of various engineering problems, such as moving boundary problems and inverse problems in acoustics. Participants in this seminar will discuss and integrate the theoretical and practical aspects of the research. The exchange of ideas and data with Japanese experts in this field will enable U.S. participants to advance their own work, and will set the stage for future collaborative projects. ***